A Project to Improve Thinking Skills Instruction in Undergraduate Laboratories

9451554 Stroup This project will improve the ability of Francis Marion University science and nonscience majors to analyze and solve new problems by developing their higher order thinking skills. The major components of the proposal include laboratory exercises organized around hands-on experimentation, a series of interactive introductory videotapes, Computer-Augmented Teaching (C.A.T.) techniques, and a program of recently published analysis problems and case studies to improve student oral and written communication. We propose to enhance the development of thinking skills by a combination of microvideo-instructional techniques and C.A.T. exercises. In two pilot research projects these multimedia presentations have been shown to significantly improve identified thinking skills when used in combination with the requested equipment. New laboratory exercises, and simulations will improve the content mastery and the process skills of our students and promote an increased interest in the biological sciences. The proposed project will impact directly on approximately one thousand students annually enrolled in Biology, will provide models for other FMU Departments, and will be extended nationally through the authors' NSF sponsored Chautauqua Short Course, the National Association of Biology Teachers (NABT) monograph series and an NABT sponsored videotape. The South Carolina Commission on Higher Education competitively funded our pilot research project, which partially equipped two of our four introductory Biology laboratories. The purpose of this NSF proposal is to request funds to purchase microvideo and microcomputer instructional systems to fully equip all four freshman laboratories. Successful implementation of our instructional strategy in all of our introductory biology laboratories will not be possible without the requested instructional equipment.